Doctoral Dissertation Research: A Grammar of Yuchi

The goal of this dissertation is to provide a description of the Yuchi language, a language isolate spoken by only twelve elderly Yuchi around Sapulpa, Oklahoma, USA. Yuchi has never been fully documented. I will provide a comprehensive description of Yuchi phonology, morphology, and syntax. In addition to the grammatical description, I will discuss issues in Yuchi syntax that directly affect current theories of the nature and structure of polysynthetic languages. I will also include texts and a brief lexicon. The primary data for this study is material collected in original field work with the remaining speakers. This project is urgent due to the small number, advanced age and fragile health of these speakers. Linguistic descriptions of little known languages, especially endgangered languages, are a fundamental and permenant contribution to linguistics. On all levels of the grammar, Yuchi exhibits unique structures which contribute to our understanding of language typology and linguistic parameters. This dissertation has immediate application for comparative linguists interested in the prehistory of the Southeast and population movements in the Americas. In addition, a grammar of Yuchi is of utmost importance to the Yuchi tribe for documentation and preparation of language teaching materials.